The 1998 Aspen Winter Conference on Frontiers in Particle Physics; Aspen, Colorado

The Aspen Particle Physics Conference, with 75 participants, is designed to provide strong interactions between experimentalists and theorists on topics of central importance to the field.